Transition Metal Catalyzed Olefin Polymerizations: Mechanistic Studies and Catalyst Design

Dr. Maurice Brookhart, Department of Chemistry, University of North Carolina - Chapel Hill, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division, with a contribution for instrumentation from the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate, for mechanistic and design studies of late transition metal olefin polymerization catalysts. The major thrust of the project will be the study of Ni(II) and Pd(II) complexes of bulky alpha-diimines, which have, for example, the ability to control polymer chain branching through ligand variation. Rigorous mechanistic studies of the polymerization reactions will be carried out in order to gain understanding of the factors that control the behavior of the catalysts and that determine the properties of the resultant polymer. A variety of alpha-diimine based catalysts, with a variety of ligand architectures, will be synthesized with the objective of probing the effect of ligand structure on polymer microstructure and mechanisms of monomer enchainment. These catalysts will be evaluated for the polymerization and copolymerization of new monomers. Using insights from these studies new neutral Ni(II) and Pd(II) catalyst systems will be prepared containing bulky bidentate anionic ligands. These systems should exhibit great functional group tolerance and be especially good catalysts for the copolymerization of ethylene and polar olefins. Intensive research has been directed toward understanding fundamental aspects of metal-catalyzed olefin polymerization and the results of these studies have been used to develop new catalysts. These have been enormously important contributions since over thirty billion pounds of polyolefin are produced in the United States each year. Most of the commercial olefin polymerization catalysts are based on early transition or lanthanide metals. In this project a series of highly versatile late transition metal catalysts will be investigated. These will provide fundamental information on how catalysts join olefins to one another during the polymerization process as well as new catalyst systems with potential industrial applications.